Genetic and Environmental Influences on Behavioral Flexibilty in an Insect

9306818 Dingle Because most behavioral variation among individuals probably results from interactions between genes and environments, it is advantageous to study the behavior of different genotypes across a range of environmental conditions. Using this perspective, Drs. Dingle and Carroll will compare social, quantitative genetic, and populational influences on the tactical decisions of soapberry bugs from two different environments. Working with an insect species permits raising many generations in a short period of time, and so increases the chances of obtaining reliable results. Drs. Dingle and Carroll will experimentally manipulate the environments that these animals experience to reveal how genes and environment interact to create behavioral differences between populations and among individuals. The approach taken here exemplifies a new model paradigm for the study of behavioral evolution. Studies of animal behavior have previously examined ecological and social causes of individual differences, but hardly any have attempted to analyze how genes and the environment (nature and nurture) influence behavior together. Human psychology is an exception to this generalization: By combining pedigree information with environmental analyses, the study of human behavior has advanced on levels little explored for other animals. Because so many individuals can be raised so quickly, and because they have been found to have as much behavioral variation as do other kinds of animals, insects are excellent model organisms for this kind of study.